Computer-Equipped Classroom To Implement Curricular Reform In Mathematics

9352334 Barrick a) equipping two classrooms with computers so that the students may test their insights immediately, use the power of graphing to reinforce mathematical concepts, and make approximation and use algorithmic thinking components in all mathematics courses at St. Gregory's College; b) transforming the mathematics curriculum by stages so that all mathematics courses will be taught in a classroom involving computer use and according to a syllabus that emphasizes mathematical concepts, graphing, algorithmic solutions, and approximation; c) utilizing these classrooms as mathematics laboratories at times when they are not used for classes; d) providing laboratory experiences in the physical and life sciences by computer that are not feasible with the equipment available in the laboratories. ***